Innovative Processing to Produce Advanced Intermetallic Materials

There is an insatiable demand for high temperature, light weight, strong and ductile materials in heat engine and structural applications. Intermetallics such as titanium aluminide offer a significant opportunity for improved high temperature properties over current state-of-the-art nickel base superalloys and titanium alloys. However, titanium aluminide base materials with substantially improved ductility, strength, oxidation and creep resistance have not been fully developed. Grain refining, micro- and macroalloying and reinforcing of titanium aluminide intermetallics are innovative approaches to improve the high temperature properties of titanium aluminide. This program will utilize a rf thermal plasma technique to synthesize ultrafine and ultrapure titanium aluminide powders. The production mechanism is aluminum reduction of titanium tetrachloride in an argon high temperature plasma. Micro- and macroalloying of titanium aluminide will also be carried out in the plasma reactor simultaneously with the synthesis of titanium aluminide powders. Reinforced titanium aluminide composites will also be investigated. A titanium aluminide base alloy and composite with improved ductility and high temperature properties will result from this program.